The Synthesis of Transition Metal Stabilized Heavy Olefins

The Synthesis of Transition Metal Stabilized Heavy Olefins: This award recommendation is made under the U.S.-Industrialized Countries program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia, New Zealand and Canada. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project suggests that heavy olefins may be stabilized by using low oxidation state transition metal complexes as substituents on the 4A metal and bulky, electron attracting groups as substituents on the carbon. Methods of product characterization are addressed. Future experiments designed to probe the synthetic utility of such heavy olefins are also discussed. The project is under the direction of Dr. Michael J. McGeary, Department of Chemistry, University of North Carolina at Chapel Hill, NC 27514, U.S.A., and Professor Michael F. Lappert, The School of Chemistry and Molecular Sciences, The University of Sussex, Falmer Brighton BN1 9QJ, England. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.